Community Science Workshops for California

9552572 Fonteyn San Francisco State University is collaborating with MESA of California to replicate the Mission Science Workshop (MSW) model for informal science education to establish 10 self-supporting interactive Community Science Workshops (CSW's) throughout California. The overriding theme for activities at the CSW's is to let children and parents "be" scientists as they explore through the use of interactive exhibits, hands-on building/tinkering activities and content workshops, while at the same time ensuring they learn correct science concepts. Content to be presented is from the areas of Engineering, Life Sciences, Physical Sciences, and Mathematics. The target audience is primarily African-American, Latino, and Native American children in grades K-8 and their families.